Outreach to the Public: Workshops at ASLO Meetings

This award will support workshops at annual winter meetings of the Association for the Sciences of Limnology and Oceanography (ASLO). The period to be covered includes the 2012 Ocean Sciences meeting to be held in Salt Lake City as a joint effort among ASLO, the American Geophysical Union (AGU), and The Oceanography Society (TOS) and the 2013 ASLO Aquatic Sciences meeting to be held in New Orleans. The PI will have two workshops at each meeting, one will be a video workshop (film festival) to be held on the Sunday before the formal meeting schedule and the other will be an evening panel discussion during the week. The underlying need for these workshops is that the environmental science community is doing a poor job of conveying to the general public the severity of environmental problems we face today and developing an interest within the public and elected officials for remedial actions. Through this work we will create a greater awareness within the research community of the need for more outreach and to provide guidance on how to better communicate the results of our research.